2-Coordinate Complexes of Positive Halogens

This grant from the Organic Dynamics Program supports the continuing work of Dr. Larry K. Blair at Berea College, who is investigating the chemistry of new positive halogen reagents. These studies should lead to new reagents with desirable handling properties for organic synthesis. The experiments to be carried out by Dr. Blair will be aimed at developing new bromine and iodine reagents that have useful properties as oxidizing agents and halogenation reagents. Complexes to be investigated include bis(amine) complexes of bromine and iodine monocations, amine complexes of molecular bromine and iodine, and amine complexes of N-bromo and N-iodoimides. The complexes will be characterized by X-ray crystallography and by NMR and UV-Vis spectroscopy. These spectroscopic techniques will also be used to study the dynamics of ligand exchange in the complexes.